Support for the Symposium on Architectures for Networking and Communications Systems

This symposium brings together researchers from two distinct but closely related and converging areas: computer system architecture and networking systems. This conference promotes cross-disciplinary research activities and outreach by providing travel support for students, post-doctoral researchers, and junior faculty to attend the symposium and have an outlet for exposure and involvement in these activities.